Infinite-Dimensional Integrable Systems and Moduli Spaces of Riemann Surfaces

Abstract

Award: DMS-9971371
Principal Investigator: Motohico Mulase

The proposed research is directed to problems in moduli theory of
Riemann surfaces, algebraic curves defined over the field of
algebraic numbers, geometry of Hermitian matrix integrals, and
integrable nonlinear partial differential equations. The goals
are (1) To give an explicit combinatorial description of
infinitesimal deformations of a compact Riemann surface in terms
of deformations of graphs on the topological model of the
surface. This will establish a canonical diffeomorphism between
the differentiable orbifold structure of the moduli space of
pointed Riemann surfaces that is obtained by the Strebel theory
and the algebro-geometric construction over the field of complex
numbers. (2) To find an algebraic and combinatorial description
of the relation between ribbon graphs and Riemann surfaces. It is
proposed to study an algebro-geometric counterpart of a ribbon
graph with complex edge length. This study is expected to lead to
a discovery of algebraic description of the relation between
ribbon graphs and Riemann surfaces. (3) To establish a theory of
transcendental solutions of the KP equations. A class of matrix
integrals give totally new solutions of the KP equations which
are not obtained by the generalized higher-rank Krichever
construction. These matrix integrals include generating functions
of the orbifold Euler characteristics of the moduli spaces of
pointed Riemann surfaces.

The motion of any string-like object in space-time leads to a
Riemann surface as it sweeps out some region. The DNA strands in
our body, for example, come from our ancestors. We can imagine a
DNA loop, that was created a long time ago, has been traveling in
time and now stored in our cell. The whole history of this
particular DNA is described by a Riemann surface. The time slice
of the surface is the DNA at this particular time. We do not know
the exact past of our genes. But we can consider the collection
of all possible scenarios that would end up with the current
structure of our DNA. This collection is the moduli space of
Riemann surfaces. Deeper analysis of the collection of all
possible past of our genes through studying the moduli spaces is
expected to lead us to a better understanding of molecular
evolution of DNA. Because of its connections to string theory in
high energy physics and potential applications to molecular
evolution of DNA, graduate and undergraduate students show strong
interests in this research, which interweaves algebra, geometry
and analysis.